Complex Shape Fabrication Using the Robotic Filament WindingTechnique

This project will determine the feasibility of using a robotic system to wind filaments in complex shapes with advanced composite materials. Objectives are: (1) create a robot filament winding workcell, incorporating an intelligent winding mechaniam and associated controller; (2) develop software to wind generic shapes using algorithms that map three dimensional curve functions into two dimensions and robotic indexing motions; and (3) establish the capability of robotic winding in a practical application. Future research will build on this program and create a generic winding system for 3-dimensional complex shapes at a cost significantly less than current winding systems.